Molecular Basis of Ion-Channel Gating

WPC 2 B P Z Courier 10cpi #| x Sj x 6 X @ 8 ; X @ HP DeskJet 500 HPDES500.PRS x @ x X , , 0 FX @ #| x 2 B ^ X i F ` Courier 10cpi CG Times 12pt " m o 8 ; ^<D\dd DDDd DDDDddddddddddDD X | |x DL | t l| DDDddDXdXdXDdd88d8 ddddHL8dd ddXXdXd d ddDDddd D d d d X X X X X X|X|X|X|XD8D8D8D8 d d d d d d d d d d X d d d d dtd X X X X X X X d|X|X|X|X d d d d d d d dD D D8D L d|8|8|8|8|8 d t d d d d H H HlLlLlLlL|8|8|8 d d d d d d d X X X d|8 d HlL|8 d d d d d D/ N d ddDXPPdd ddd dHdddd H d x H d h 1D DD x dp d x d x X L p x xdx X x x xL xxxxxxxxxxxxxxxxxxxLLLLLLL x ? x x x , Sj x 6 X @ 8 ; X @ 8 p C < , W X p P rk ; X P result, an understanding of nervous system function at the molecular level will r re knowledge of the molecular structures and the structural changes in membrane pr 2 Y # X p P rk ; W X P# 9309352 Cafiso The transport of ions across membranes is a fundamental process for a wide range of cellular functions including membrane signaling in the nervous system. As a result, an understanding of nervous system function at the molecular level will require knowledge of the molecular structures and the structural changes in membrane proteins that promote and regulate ion movement. At the present time, these structures remain largely uncha racterized because efficient methodologies to determine membrane protein structure are not available. The research that is proposed here will investigate and develop new methodologies to examine membrane protein structure. These methods will combine covalent labeling and powerful new approaches using mass spectrometry, and will be used to provide information on the structure and operation of the nicotinic acetylcholine receptor. The nicotinic acetylcholine receptor is a membrane ion channel that functions at the neuromuscular junction, and it is typical in size and complexity to many other ion channels that function in the nervous system. Novel molecular probe techniques and magnetic resonance methods will also be used to examine the properties and structure of important regions on the acetylcholine receptor. ***